USA-Sweden Collaborative Workshop in Algebraic Combinatorics

USA-Sweden Collaborative Workshop in Algebraic Combinatorics

The Mittag-Leffler Institute in Djursholm, Sweden, will devote the
spring of 2005 to a special program entitled "Algebraic
Combinatorics." On the occasion of this program, we propose to
organize a collaborative research experience for young researchers
from Sweden and the US. We request funds to support the participation
of six young researchers from the US for two to three months each in
this collaborative workshop. This workshop will provide a unique
opportunity for these young mathematicians to develop collaborations
with their counterparts from Sweden, as well as with leaders in the
field from Scandanavia, Western Europe, and Asia. In the long term the
workshop will increase the potential for these young mathematicians to
become leading researchers in algebraic combinatorics and related
areas.

The theme of the program will be the interaction between combinatorics
and such other branches of mathematics as algebra, geometry, and
topology. At least 28 of the world's leading researchers in algebraic
combinatorics have agreed to participate in the program for at least
one month each. Topics that will be investigated during the program
include classical enumerative combinatorics (e.g., the
Mills-Robbins-Rumsey conjectures, statistics on finite and affine
Coxeter groups), convex polytopes (boundary structure, flag f-vectors,
diameters, Charney-Davis conjecture, applications to computational
algebra, minimal triangulations), and connections with algebra
(outgrowths of the n! conjecture, Schubert and Grothendieck
polynomials, ribbon tableaux).